Ultra-High-Resolution Acoustics Profiling of Sediment Structures

Studies of sedimentary processes in the deep sea, estuaries, and large lakes show the presence of lineated sedimentary bedforms (furrows) with cross-flow dimensions of several to tens of meters in cohesive sediments. These bedforms have developed as the result of long-term interaction between flow and the sediment, and the structure of the bedform must contain important information about the growth of the bedform and the time variability of the currents which have created it. The project will develop and use a ultra-high-frequency subbottom profiler for use in studying the upper 1+ m of the sediment surface from manned submersibles in order to study the structure of sedimentary furrows (and other intermediate-scale sedimentary features) in Lake Superior and, at a later date, in the deep sea.